CISE Research Instrumentation: High Speed Optical Network Testbed for Research in Telecommunication and Massive Parallel Computation

This award is to purchase a high speed network testbed to support several projects at Purdue University including research in admission control of multimedia traffic for Broadband Integrated Services Digital Network (B-ISDN) technology, transient behavior in buffers in multimedia networks, synchronization protocols and prototyping of a broadband Distributed Multimedia Information System, heterogeneous distributed computing, and massively parallel numeric computation. The network testbed will be implemented in collaboration with the TeraNet project at Columbia University's Center for Telecommunications Research The proposed equipment will be used to implement a three-node TeraNet testbed in order to support various research projects related to Broadband Integrated Services Digital Network, distributed multimedia systems, parallel processing and distributed computing. The equipment will be used in collaboration with the TeraNet project at Columbia University's Center for Telecommunications Research.//